STEMTeach: An Interdisciplinary and Immersive Program for the Preparation and Induction of STEM Teachers

This Noyce Track 1 project at Berry College aims to serve the national need of preparing highly qualified math, science, and technology teachers. This project will support 22 undergraduate Noyce scholars over five years who will pursue dual majors in secondary education and biology, biochemistry, chemistry, computer science, creative technology, environmental science, mathematics, or physics by providing/offering early teaching experiences, immersive educational experiences in international locations, and continued support after graduation. The proposed project components will enable high-achieving prospective teachers to become secondary STEM teachers with extensive expertise in teaching instruction.

This project at Berry College includes partnerships with Rome City Schools, Floyd County Schools, and Bartow County Schools. Project goals include support for 22 undergraduate Noyce scholars over five years who will pursue dual majors in secondary education and biology, biochemistry, chemistry, computer science, creative technology, environmental science, mathematics, or physics. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation question(s): (a) Has our project increased the number of highly qualified STEM teachers graduating from Berry College and teaching in high-need rural, urban, or suburban schools, and (b) Has our project developed our Noyce Scholars’ curricular beliefs and actions in support of effectiveness as STEM teachers in high needs schools. The results of this project will be disseminated to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.